The Utility of Adaptive Treatment in Training and Development: ROW Planning Grant

This proposal for a Research Planning Grant examines adaptation in the training and development within organizations. Changes in the demographic composition and the skill/knowledge base of the labor force suggest that organizaitons will need to focus more of their management activities on training and development. These changes also suggest that organizations will need to take an interactionist approach to training, i.e., adapting the training method or content to meet the needs and aptitutes of individduals in the workforce. Little research has been done in organizational training environments on how to adapt training in this fashion. Research in cognitive psychology and education provides a foundation for theoretical work in this area. This research suggests that aptitudes andmethods do interact and can enhance performacne both for individuals and for organizations. The planned research involves building on the research in cognitive psychology and education, developing theoretically-based hypotheses, and proposing a series of studies to test these research hypotheses. In the long run, this investigation will lead to insights into adaptive approaches to training and development.